Center for Research on Culture, Development and Education

The academic underachievement of certain ethnic minority groups in America continues to perplex educators, scientists, and policy makers, despite thousands of studies, hundreds of remedial programs, and decades of being considered a crisis. Several recent trends add weight to the crisis. First, within the next 50 years, people identified as ethnic "minority" will comprise half the U.S. population. Second, new waves of immigrants continue to arrive, ensuring fundamental but unknown changes in the intercultural dynamics of schools and other contexts. Third, the United States has evolved into a "knowledge-driven" economy, making a solid education, particularly in math and science, vital for an increasingly large sector of the workforce. Finally, recent federal legislation calls for annual standardized assessments of school children, a prospect that may disadvantage certain minorities who typically underperform on these tests. More than ever, a sizable proportion of our nation's children are at risk of academic failure, posing a serious threat to the current Administration's goal of "leaving no child behind." In line with this national goal, the Center for Research on Culture, Development and Education (CRCDE), housed at New York University (NYU) will conduct research designed to identify pathways to academic success for all children. Prior research has focused narrowly on a single context (e.g., the family, peer relationships, school quality, etc.) in predicting academic outcomes, or has investigated the roles of ethnicity, race, immigrant status, gender, or socioeconomic status separately. Neither approach, however, has adequately addressed the ways in which multiple contexts contribute to educational success and/or disparities, nor how pathways vary by developmental period and culture. Furthermore, an over-emphasis on group differences has resulted in the neglect of patterns of academic outcomes within ethnic, socioeconomic, or cultural groups. Finally, studies across all of these areas have tended to utilize single methodologies, rarely integrating survey, ethnographic, experimental, and observational methods. To address these gaps, the CRCDE will gather and disseminate data about the pathways that lead to successful academic engagement and performance among culturally diverse children and adolescents. The scientific mission of the CRCDE is to use an integrative conceptual framework, cross-disciplinary collaboration, and multiple methods to (1) identify the nature of relationships that link children's experiences in five educationally relevant contexts, home, school, peers, caregivers' work, and media, to their academic engagement and performance; (2) examine whether and how these processes vary within and across cultural groups and across developmental periods; and (3) advance an understanding of how home, peers, school, caregivers' work, and media affect one another and jointly influence children's and adolescents' academic engagement and performance. The educational mission of the CRCDE is to (1) train a new generation of scholars, especially those from underrepresented minority groups, to engage in research that advances the scientific mission; (2) produce instruments and methods that will strengthen the scientific capacity of the research community to conduct culturally sensitive research on academic engagement and performance; and (3) transmit findings to policy makers, practitioners in education, and researchers, through dissemination of findings and lessons for educational policy and practice. The Center's location in the diverse context of New York City (NYC) is ideal for a center devoted to research at the confluence of culture, development, and education.